POWRE: Strategies to Add Redundancy for Graceful Degradation of Image and Video Quality Over Lossy Packet Networks

EIA-9973531
Riskin, Eve A.
University of Washington

CISE/POWRE: Strategies to Add Redundancy for Graceful Degradation of Image and Video Quality over Lossy Packet Networks

This project will develop, analyze, and apply new algorithms to assign unequal erasure protection (UEP) to progressive data to provide graceful degradation against packet loss. If severe packet loss occurs, the most important data would be received by the decoder instead of the less important data. These new algorithms will be practical in that they will lead to improved image and video quality at the receiver in cases of high packet loss rates. Our new algorithms will have practical use in many arenas including the Internet and wireless communications.